Evaluation of a Suite of Interactive Modeling, Controls, Rapid Prototyping, and Embedded System E-Book Modules

An evaluation of the materials that have been prepared for an e-book for use in teaching control system engineering is being conducted. The evaluation will examine student learning outcomes and attitudes toward an electronic textbook. Additionally, representatives from industry are reviewing the materials and providing an assessment from the industry viewpoint. Faculty at other institutions who have used portions of the electronic book in their classes are also engaged in the evaluation efforts.